CAREER: Stability and Dynamics of Mixed-Kinematic and Non-Isothermal Viscoelastic Flows and Development of Internet-Ready Instruction Modules

Professor Sureshkumar and his students will address the core elements that are required to design and control polymer processing operations; namely, they will develop reliable models and robust simulation tools to predict the stability properties of non-isothermal viscoelastic flows. Their experiments will employ digital particle image velocimetry (DPIV) as well as infrared imaging techniques. Professor Sureshkumar has also identified a comprehensive plan to provide educational experiences for students in K-12 through graduate study. He will emphasize, in these experiences, the importance of these viscoelastic flows and the efficacy of the analytical/experimental techniques that are utilized in his research.